SBIR Phase II: Automating Workflow In Agriculture - Integrated Pest Monitoring System for On-Time and Online Decision Making

This Small Business Innovation Research (SBIR) Phase II project will proceed with the development of a fully automated and integrated pest management (IPM) system. The goal of IPM is to minimize reliance on pesticides by emphasizing the moment-to-moment knowledge of the field situation to dynamically make decisions and deliver timely, targeted actions. Current IPM programs use data collection technologies from early 1900s, thus lacking speed and integration necessary to generate reports required by decision-makers who need to act quickly. With the Phase II development of a robust centralized Internet hub housing expert systems for automated data analysis, reporting (with GIS) and quick distribution of information, the benefits to agriculture will be unsurpassed.

The company targets its suite of field data management and decision-making tools the pest management market.